ADVANCE

The overall long-term goal of the Long Island University IT-Catalyst proposal is to create a world-class racially, ethnically, and gender diverse STEM faculty to reflect the diversity of their students. To prepare to meet this goal they will identify barriers to the hiring, retention, and advancement of STEM women, and especially underrepresented minority STEM women. Specifically they will collect and assess historical and current quantitative data; conduct surveys and focus group interviews of a comprehensive array of STEM stakeholders on campus; review department and institutional policies and practices; and analyze proven ADVANCE-IT strategies used at other institutions. Overall, this project is expected to provide Long Island University with critical information with which to develop an institutionally targeted plan for transformation, and promote institutional buy-in for such a transformation. The diverse nature of the institution and the quality of the PI team suggest that this institution’s work will serve as a model for institutional transformation at other similar colleges and universities.